Herbivory and Phytoplankton Growth in the Subarctic Pacific:Project SUPER

This proposed SUPER - SUbartic Pacific Ecosystem Research is a renewal of the 1984-86 SUPER Program. The initial and proposed project have focused on understanding the food web relationships and other upper ocean processes leading to the population dynamics of phytoplankton and zooplankton in the Subarctic Pacific. The population dynamics in this region contrast greatly with the wide seasonal fluctuations (blooms, etc.) characteristic of the North Atlantic. While the North Atlantic has been considered by many to be the model of how high latitude oceans work, increasing evidence suggests the North Pacific may be more of a norm. Initially, work in the Subarctic Pacific centered on the larger size fractions of both phytoplankton and zooplankton and on the notion that phytoplankton growth was continuously balanced by zooplankton feeding (the Major Grazer Hypothesis). Unusual characteristics of the surface water mass allowed the maintenance of higher zooplankton abundance in the euphotic zone, thus allowing zooplankton to closely tract any phytoplankton increases. The lag seen. The results of the initial SUPER Program, indicate that zooplankton numbers/feeding capabilities are 10X too low to account for the balance of populations, and the copepods must have a direct feeding connection to microzooplankton (heterotrophic flagellates and ciliates). The Major Grazer Hypothesis is not an accurate paradigm of the ecosystem dynamics; and alternative Limited Mixing/Micrograzer Hypothesis has been forwarded and tests of this new hypothesis are proposed. This will involve comparisons of phytoplankton (all sizes) production rates with zooplankton (all sizes) grazing rates, and a quantitative assessment of nitrogen dynamics as a basis for estimates of phytoplankton production capabilities. Over 30 scientists have contributed reviews of the proposed program withoverwhelming support for the investigation. All of the SUPER investigators are leaders in their respective subdisciplines; all are productive and experienced in large program cooperation/collaboration. Dr. Welschmeyer's component is considered an essential facet of the multi-disciplinary, multi-institution effort. The Biological Oceanography Program strongly recommends support of the entire integrated program. An award to Dr. Welschmeyer for research on phytoplankton rates, zooplankton feeding rates, and sediment trapping studies is recommended at the following levels: FY 87, $197,201; FY 88, $141,573; FY 89 $81,333.